Signal Processing for Digital Analog Interface

Abstract:

This research explores how techniques from coding and signal processing can be
used to build better analog to digital and digital to analog converters, create better half toning algorithms
for digital printing,and improve medical imaging. All of these as well as many other applications use a technique called
Sigma Delta modulation. Sigma Delta modulation is a technique which allows high precision
signal to be generated from binary quantized data. This research provides a new interpretation of Sigma Delta
modulation by viewing it as a greedy solution to an optimization problem instead
of a linear system with feedback.

This new view not only explains how existing Sigma Delta modulators work but also
suggests a whole new continuum of modulator structures which can
trade complexity against performance. The research has two main
thrusts, one practical and experimental and the other theoretical.
The practical thrust will improve upon the existing empirical
approaches to conventional Sigma Delta modulator design and then
adapt them to new modulator structures suggested by the optimization
approach. This research should yield immediate benefits for the
numerous areas where Sigma Delta modulators are used now as well
as new applications that will become viable because of this
research. The theoretical thrust will develop a rigorous
understanding of the quantization process.